Acquisition of Ultrafast Spectrometer for Interdisciplinary Studies of Nonlinear Processes at Interfaces and in Condensed Matter

This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at Yale University acquire a laser system. This equipment will enhance research in a number of areas including the following: (1) time-resolved two-photon photoelectron and photofragmentation spectroscopies of mass selected negative ions (2) liquid dynamics and solvation probed with fs THz pulse spectroscopy (3) non-linear spectroscopy of microdroplets, and (4) nonlinear spectroscopic probes of photo-induced molecular dynamics and the optical properties of novel materials. A tunable laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactive and nonreactive molecules.